A New Detector for Measuring Polarized Light: Modeling, Characterization, and Testing for Significantly Improved Imaging Capabilities.

Abstract Title: A New Detector for Measuring Polarized Light: Modeling, Characterization, and
Testing for Significantly Improved Imaging Capabilities.

Nontechnical Abstract: Current polarized light photodetectors suffer from low spatial and/or temporal resolution,
or they experience systematic error. This is due to multiple detectors needed to fully characterize polarized light,
which often require measurements at different times. This limits high-resolution polarized light imaging; a process
that is critical for applications ranging from astronomy to biomedical imaging to pharmaceuticals. The research
under this grant will investigate the development of a polarized light detector (polarimeter) capable of overcoming
existing limitations, as well as adding new functionality not currently available. This will be achieved by taking
advantage of the unique optoelectronic properties of polymer semiconductors. Multiple semitransparent organic
photodetectors will be processed at a single spatial location and the multicell stack will be optimized to develop
a polarimeter with advanced capabilities. This grant also provides an opportunity to develop outreach activities
to interest high school students, both locally and nationally, in optical science and engineering.

Technical Abstract: The objective of this proposal is to investigate the use of organic photovoltaic modules as
inherently polarization sensitive detectors. Current methods of polarization imaging or detection rely on either
time-sequential or instantaneous measurements taken after light transmits through polarization sensitive elements.
These, often complex, optical systems are necessary because there are no current detector technologies capable of
measuring the complete polarization state, at a single spatial location, within a single integration time.
This results in several disadvantages associated with existing technologies; chief among them are temporal and/or
spatial misregistration that causes errors in the sensed polarization elements. To alleviate these errors, this
proposal details a novel strain-aligned polymer-based photodetector that is inherently polarization sensitive.
The objectives are to: (1) Create an optoelectronic model of multi-layer organic photovoltaics (OPVs);
(2) Create a free-space polarimeter design, using multiple semi-transparent SOPD proof of concept devices;
(3) Design and create an experimental proof of principle multi-layer monolithic polarimeter based on S-OPDs;
(4) Leverage the model and concept to create calibration procedures; and (5) Explore multi-spectral and
multi-Stokes detectors, including their incorporation into arrays and unique geometrical structures.

Polymer semiconductors commonly have a primary optical dipole transition that is
parallel to the conjugated backbone. Thus, uniaxially aligning the polymer in one-direction results in
anisotropic optical detection. The intellectual merit of this proposal is through the study of the device
performance opportunities enabled by aligned polymer based polarimeters with inherent polarization
sensitivity. Merit is found in: (1) The optimization of OPV structures, biasing, and circuitry for use in
photodetection processes; (2) Developing insight into how alignment and anisotropy influence
energy conversion; (3) Establishing advanced optoelectronic modeling of complex multi-layer
anisotropic organic photodetectors at various angles of incidence; and (4) Calibration procedures,
algorithms, and techniques for using OPVs as polarization-sensitive photovoltaic detectors. The
proposed endeavor has the potential to create broad new areas of research in multi-dimensional
monolithic optical sensing.

The proposed research has significant commercial potential, benefiting the fields
of telecommunications, remote sensing, and biomedical imaging. This project will also provide
support for two graduate student researchers in polarimetry and device fabrication. Dissemination of
research results will occur through publications and outreach efforts to the general public will also be
conducted by both PIs. For instance, online tutorials to garner excitement for polarimetric imaging
will be produced that include fabrication tutorials and software development that would place
polarimetric imaging at the hands of amateur hobbyists and students. Additionally, the PIs will
contribute to a week-long high school summer camp held at NC State to attract students to
engineering careers. In this camp, outreach modules related to polarized light in nature will be
created and disseminated.